Oceanographic Instrumentation

The Duke University Marine Laboratory will acquire several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V CAPE HATTERAS, a research vessel owned by the NSF and operated by Duke University. A substantial part of the ship's operating schedule during 1989 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The instrumentation includes: -Box corer for collecting undisturbed sediment samples from the seafloor, -Computer and other hardware upgrades for the SAIL shipboard data logging system, -Spectrophometer for measuring light levels and other optical properties in the water column, -Optical disk drive system and for increasing shared-use computing capabilities at sea, -Parts for a Conductivity, Temperature and Depth profiling device, -Enhancements to the single-channel digital seismic system, -Radio Direction Finder Antenna for locating floating instrumentation at sea. The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.